SBIR Phase II: Affordable Handwriting Capture Device for Augmenting Communications Within Groups

This Small Business Innovation Research Phase II project provides an affordable means of electronically enhancing the nation's installed chalk, white, and drawing board base of 2.5 million units. By adapting conventional writing surfaces rather than replacing them with expensive electronic white boards or graphics tablets, academic institutions, corporations, and governments could save approximately $10 billion in new equipment and installation costs. CyberScan Technologies proposes to develop a retrofittable, low cost,
area adaptive product that can optically capture notes, drawings or sketches to a computer or to the Internet. CyberScan will refine the feasibility of digitizing hand strokes in real time that it demonstrated in Phase I using a small optical sensor and an optically transmitting pen or chalk holder. CyberScan's objective is to convert written information on standard school chalk board surfaces of nine feet by four feet into electronic data suitable for display on a PC SVGA display screen and posting on Internet Web pages.

Potential commercial applications of the research include: CAD/CAM digitizers, low cost and portable electronic white board alternatives, video conferencing input devices, medical patient charting, and academic, corporate, military, and government interactive presentation devices. Because of the serious interest of three potential marketing partners in the electronic white board field, rapid commercialization of products beyond
Phase II is extremely likely.